U.S. GLOBEC: Turbulent Mixing on Georges Bank

9631175 HEBERT This project will examine turbulent mixing on Georges Bank as part of the U.S. GLOBEC Northwest Atlantic Field Studies, Phase 2 program. Research will be conducted to determine if there are relationships between turbulence and predator/prey distributions in the context that turbulence levels affect the patchiness of prey and predators. Three different objectives will be pursued: 1) to investigate the processes and dynamics responsible for the vertical structure of mixing rates; 2) to determine bottom stress at each location and formulate a parameterization to explain the variability of the stress; and 3) to define the relationships between biological patchiness and turbulent mixing rates. ***